Short-Term Visit to Plan U.S.-Indonesia Cooperative Researchon Indonesian Ocean Circulation and Mixing

This award provides funds to permit Dr. A. Gani Ilahude, Chief, Oceanography Division, Research and Development Centre for Oceanology, Jakarta, Indonesia, to visit the United States to plan, for a period of one month, with Dr. Arnold L. Gordon, Lamont-Doherty Geological Observatory, Columbia University, collaborative research on Indonesian Ocean Circulation and Mixing. The two collaborators also will finalize research reports on a 1991 research cruise and report their results at an American Geophysical Union Meeting in San Francisco, in December 1992. The study of the throughflow of Pacific Ocean water into the Indian Ocean via straits in the Indonesian Archipelago is a matter of great scientific interest in gaining an understanding global ocean circulation. The two collaborators are highly respected scientists who have outstanding records of research in the field of this project. The present project and the research which they will plan will allow them to combine their talents for mutual benefit. This project is relevant to the objectives of the Science in Developing Countries Program which seeks to increase the level of cooperation between U.S. scientists and engineers and their counterparts in developing countries through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Support of Dr. Gordon's participation in this project is provided through an award from the NSF Division of Ocean Sciences.